GRASSY: A Hardware-Accelerated Spectral Synthesis Engine for Asteroseismic Mode Identification

A hardware-accelerated graphics processing unit-based computational machine will be designed, developed, and commissioned to support reduction and analysis of time series of stellar spectra. The goal of this project is to study the variability to infer details of the structure of the inside of the observed stars. This tool, referred to as asteroseismology, is a unique method to probe a star's internal structure from measurements of its discrete oscillation spectrum. Asteroseismology was originally developed for studying the sun, but advances in space-based observations are allowing its application to other stars.